SEMANTICS OF NONDETERMINISM

Boolean categories provide a framework for programming language semantics. In contrast to the syntax-driven style commonly employed in theoretical computer science, there is but one primitive, program- chaining, in terms of which all other constructs must be expressed; extensive work by category theorists in the past four decades has demonstrated the feasibility of this approach. The abstract theory of Boolean categories and some of its specializations have been developed by the proposer and his close colleagues in the past ten years. This work has studied fundamental control structures including recursion. Further, all Boolean categories have an intrinsic theory of predicate transformation which provides a high-level specification language of logical assertions. It is a theorem that this specification language follows the lines of classical nondeterminism. By contrast, the choice of model is flexible enough to allow the hidden state to be arbitrarily complex, it being possible to represent very general forms of nondeterminism. The research centers on incorporating fairness and unbounded nondeterminism into the Boolean category framework.